Global Seismograph Network Improvememts

Funds are requested for the USGS Seismological Laboratory for the operation and installation of the Global Digital Seismic Network. The subcontract is essential for the deployment and maintenance of IRIS seismograph stations which is part of the IRIS responsibilities defined in their proposal and cooperative agreement.